1999 IEEE Information Theory Workshop on Detection, Estimation, Classification, and Imaging, February 24-26, l999, in Santa Fe, New Mexico

This workshop is intended to bring together a group of research scientists, educators, and students to present and discuss research topics on the fundamental theoretical aspects of detection, estimation, and classification and emerging application areas in which further theoretical results are needed. The most prominent area in which these further theoretical results are needed is in imaging.